Patterns and Mechanisms of Ovule Diversification

As the developmental precursors to seeds, ovules are a defining feature of
seed plants and play essential roles in their sexual reproduction. Among
angiosperms, the dominant group of seed plants, ovules are diverse,
exhibiting differences in the number of integuments (external sheathing
structures), and in the orientation of the micropyle (the opening in the
integuments which facilitates fertilization). Ovule diversity has been
invaluable in evolutionary studies of angiosperms, and ovule development
has become a useful model for studies on genetic regulation of plant
morphogenesis.

An interdisciplinary approach will be used to characterize the historical
patterns of ovule evolution and its molecular genetic basis. Ovule
characteristics will be plotted onto the best available phylogenies for
angiosperms to clarify transitions between primitive and derived ovule
features. Species having either primitive or derived ovule features will
be selected for phenotypic and molecular genetic characterization.
Molecular genetic analysis of the basis of changes in integument number and
micropyle orientation will be accomplished through analysis of orthologs of
INO, a gene which regulates these processes in Arabidopsis and which is
specifically expressed in the outer integument. Isolation of INO orthologs
from key species, and characterization of expression patterns, will enable
the formulation and testing of hypotheses on the molecular genetic changes
underlying ovule diversification.

To facilitate future studies on ovule diversification, we will also isolate
ATS, a gene required for developmental separation of outer and inner
integuments in Arabidopsis.

Completion of the proposed work will provide insights into the regulation
of plant development, ovule diversification, and their interrelationship.